A Teaching and Computing Laboratory for Psychology

9352501 Henley This project provides a multi-purpose microcomputer laboratory (1) to enhance teaching in experimental psychology; and (2) for the learning of computer applications in the discipline. The microcomputers, dynamic classroom display, and simulation software form a laboratory which has significantly improved the teaching environment for computer applications. The project has increased students' access to basic microcomputer facilities, and to local and remote computer networks. The project is also expected to improve instructional capabilities in experimental psychology by providing a laboratory facility for majors and, through the innovative use of simulation software, provide direct experience with the critical thinking, design, conduct, analysis, and reporting of experiments not possible through the traditional lab approach.